Oxygen-17 Nuclear Magnetic Resonance of Oxide Superconductors

They propose a comprehensive study of the oxygen-17 nuclear magnetic resonance spectroscopic behavior of a range of oxide superconductors in their normal, and in many cases, superconducting, state. Newer systems will naturally be included, as they become available, as will a series of model perovskites and copper oxides. They will obtain knight shift, linewidth, and spin-lattice (Korringa and Arrhenius) relaxation time (T1) behavior of each of these systems, and relate there to structure, and to the experimental Tc temperatures observed. Where appropriate, oriented samples will be used, to facilitate spectral assignments. They will investgigate the kinetics of oxygen exchange; the effects of sequential oxygenation on NMR/superconducting behavior; the topic of "frozen" states; melt textured growth and the removal of "weak links".